Workshop: Progress in Nonlinear-Optics: Organic and Polymeric Materials to be held on July 16-17, 1992 in San Diego.

This proposal seeks partial funding for an international conference on the topic of organic non- linear optics with meeting headquarters at Washington State University. The purpose of the meeting is to bring together top researchers - whose expertise spans material design, material characterization, device fabrication, and integrated device architectures - to the intimate setting of a small university town to discuss and assess progress in the field.